CAREER: An investigation of the role of Piezo1 polymorphisms in traumatic brain injury pathology using isogenic human in vitro models

The protein Piezo1 in human body allows cells to feel mechanical forces such as stress, strain, and trauma. Cells use Piezo1 to drive the sense of touch and direct joints, muscles, and tendons to gain strength when they are overloaded. E756del is a genetic variant in the gene for Piezo1 and those who have this variant are highly sensitive to mechanical load. For example, athletes with this variant develop stronger tendons so they can run faster and jump farther than others. However, individuals with the variant may also have an excessive response to mechanical load on the brain associated with concussion and traumatic brain injury (TBI). This CAREER project will study the impact of E756del variant in Piezo1 protein in cellular models of TBI using engineered stem cells. The project will compare cellular response to mechanical injury to determine how this variant leads to worse health outcomes. The project also includes a comprehensive education and outreach plan to engage high school students through hands-on demonstrations and activities to understand how genes and trauma together contribute to TBI.

Piezo1 is a stretch-activated calcium channel expressed throughout the body. The E756del is a common gain-of-function allele in Piezo1 that enables prolonged excitation in response to mechanical stimuli. Such mechanosensitive response has far-reaching consequences such as enhanced athletic ability. Yet, boosting Piezo1 function is also known to exacerbate central nervous system injuries. The central hypothesis is that E756del variant enhances the calcium influx and ensuing pathology caused by TBI. This hypothesis will be tested by producing isogenic lines of induced pluripotent stem cells with and without the variant, and comparing their response to mechanical forces in cellular models of TBI. 2D monocultures of neurons or astrocytes will be injured with dynamic stretch while 3D organoid cultures will be dynamically compressed. Both injury models represent pathological processes relevant to neurotrauma and neurodegeneration as well as changes in mechanical properties that inﬂuence the deformation of the brain during future impacts. This study will help establish reliable human in vitro models as a novel, informative, pre-clinical approach to TBI, and establish a relationship between the E756del allele and trauma outcomes for broad translational impact.